U.S.-France (INRIA) Research Workshops: Approximation and Simulation of Stochastic Processes

This two-year US-France award supports the participation of US investigators in research workshops addressing numerical analysis of stochastic differential equations. The workshops, which take place in the US and France in 1998 and 1999 respectively, will be organized by Philip Protter of Purdue University and Denis Talay of INRIA (the French National Institute for Research in Informatics and Applied Mathematics). The workshops are aimed at recent developments in simulation methods, approximation and numerical schemes. The area of stochastic models has a variety of applications in economics (finance), interacting particle systems, population genetics, and mathematical biology. The proposed workshop will advance our knowledge of the use of stochastic modeling processes in these and other disciplines in physics and engineering.